Analysis of the Potential for Targeted Host Specificity in Bacterial Plant-Inoculants

Plant and soil health can be improved through the inoculation of plant roots with beneficial bacterial. In particular, bacterial inoculants that control fungal diseases of plant roots have proven successful under restricted conditions. However, the potential of this approach has yet to be realized in the filed. One reason is that individual bacterial products are limited in their range of applicability due their lack of ability to establish high populations in the rhizosphere of different crops under different environment conditions. The goal of this proposal is to isolate genes that would improve the competence of fluorescent pseudomonads to establish themselves in the rhizosphere of different crop plants. The approach proposed is first to assemble a well- characterized collection of fluorescent pseudomonads that are amenable to molecular genetic manipulation, and then to determine whether their rhizosphere competence is host- specific for three different crop plants. Success is in this approach will pave the way for the development of root- colonizing pseudomonads as microbial pesticides for soil- borne fungal pathogens, and provide a viable alternative to the use of chemicals for the control of many plant diseases.